CEDAR Post Doctoral Fellowship

This proposal funds a CEDAR Post-doctoral Fellowship. The post-doctoral work will be conducted at remote sites such as Kwajalein, Peru and Scandinavia, as well as in Ithaca. Travel to these locations is included. There is also an institutional allowance and an allocation for software procurement.***//